Coherence Holographic Reflector Based on Non-Linear Materials

The increasing application of lasers in free-space and guided wave communication as well as remote sensing has created a need for means to detect laser signals effectively with the desired signal-to-noise ratio in the presence of strong ambient light. In the research, a fundamentally different approach to discriminating laser signals from ambient background is devised by taking into account the degree of coherence of the incident laser signal besides its well-defined wavelengths and linewidths. In this concept, a special coherence holographic reflecting filter will be fabricated that can discriminate between light signals of different coherence. The novel Coherence Discriminating Reflection (CDR) filters from this research also represent a new class of holographic elements fabricated using photorefractive crystals (lithium niobate). In addition to enabling more effective laser detection, the concept in this research can also lead to a new scheme of multichannel signal multiplexing and transmission, namely Coherence Length Multiplexing (CLM).